HiSeasNet: Continuous Internet Connectivity for Oceanographic Research - 2024-2028

This project supports satellite communications infrastructure enabling scientific operations aboard research vessels operating as part of the U.S. Academic Research Fleet. These communications services provide reliable connectivity supporting scientific data transfer, operational coordination, remote technical support, and collaboration among researchers at sea and ashore. The project strengthens shared research infrastructure across the fleet while supporting modern ocean science, workforce development, and research and education activities relevant to ocean observation, environmental prediction, coastal resilience, and stewardship of marine resources.

The project provides satellite communications services, network management, and technical expertise necessary to maintain reliable ship-to-shore connectivity for research vessels operating throughout the global ocean. These services support transmission of scientific data, remote system monitoring and troubleshooting, scientific collaboration, and coordination of vessel operations while at sea. The project helps maintain the communications infrastructure necessary to support a broad range of oceanographic research activities conducted aboard Academic Research Fleet vessels and ensures reliable connectivity for researchers, technical personnel, and vessel operators supporting the nation's ocean science enterprise.